Network Start-up Resource Center

A set of existing informal arrangements for providing assistance in setting up new computer networks in under-networked areas and linking them to the U.S. will be enhanced and focused on the particular needs of U.S. scientists traveling to or developing collaborations with such areas. The resource center will provide installation tool kits for network software, together with documentation, advice and information about possible linkages to existing networks and facilities. It will provide a catalyst and focal point for making textbooks and surplus hardware available to critical individuals and hub facilities from which national and regional network spines might be expected to evolve. The primary focus will be on proven, time-tested and reliable technology in all areas, with the objective of serving users who are not computer experts. By building on existing support networks of people and facilities, the center will accomplish a high leveraging of NSF funds.